Doctoral Dissertation Research: Climatic Controls on Sand Mobility in the Mojave Desert, California

9404700 BRAZEL Among the more important dimensions of environmental change is the expansion of deserts. Although climatic factors are known to contribute to desertification, the dynamics through which winds, precipitation, and evapotranspiration affect the form and migration of sand dunes is not well understood. This doctoral dissertation research project will model the meteorological conditions that activate sand dunes in the Mojave Desert of southern California. Photographic and written accounts of will be compared with climatic records of wind speed and duration, precipitation, and potential evapotranspiration to identify conditions leading to dune mobility. Using an index of dune mobility developed in other locales, special attention will focus on the ways that climatic changes as well as human activities, such as increased use of off-road vehicles, affect vegetative cover that tends to stabilize dunes. This project will contribute to new understandings in a number of ways. It will advance knowledge about desert climatology and the influence of both climatic and anthropogenic factors on landforms in arid regions. It will increase understandings of aeolian geomorphology, and it will provide new insights into the possible consequences of climatic change on the form and character of deserts. As a doctoral dissertation improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.